Collaborative Research: Mineral-associated organic matter: An overlooked source and mediator of bioavailable nitrogen

Plants need nitrogen (N) to survive, but it remains a mystery exactly where, when, and how plants acquire enough N from the soil. This N dilemma limits productivity and leads to challenges in predicting and managing N cycling in natural and managed systems. This project examines a new, more holistic perspective on the terrestrial N cycle that encompasses multiple sources of N from the soil. The research focuses on the previously overlooked role of mineral-associated organic matter (MAOM) as a potential major driver of N supply to plants. Long-standing theories consider MAOM to be largely inaccessible to plants and microbes, but emerging evidence highlights the need to re-examine this wholesale classification. This work examines the potential N-supplying capacity of MAOM in the zone of soil surrounding roots, a critical nutrient hotspot. Ultimately, the results provide new insights into the role of MAOM as a mediator of bioavailable N, which will challenge our fundamental understanding of the processes that regulate soil N cycling in terrestrial ecosystems. The work involves participation in a program at Oklahoma State University, which aims to increase the participation of under-represented populations in STEM disciplines. The project also supports a collaboration with the Oklahoma Conservation Commission to develop a student-led workshop and video series on soil biogeochemistry with specific relevance to soil organic matter and MAOM management.

The overarching objective is to quantify and characterize the intrinsic and plant-mediated capacity of MAOM to supply bioavailable N. The guiding hypothesis emphasizes the dependence of MAOM-N supply on the intrinsic physical-chemical properties of MAOM, the bioavailability of MAOM relative to other forms of soil organic matter, and plant-microbial mechanisms that can facilitate the mobilization of N from MAOM. The project pursues the following objectives: 1) Examine edaphic factors regulating plant and microbial access to MAOM-N; 2) Identify mechanisms driving MAOM-N mobilization; 3) Assess feedbacks between plant investment in belowground carbon and MAOM-N mobilization. The study assesses soils varying in geochemical properties using laboratory and greenhouse experiments. Experimental manipulations combined with stable isotope tracing allow for the tracing of MAOM-derived N into bioavailable pools, as well as uptake by microbes and plants.